ITR: Advancing Digital Imagery Technologies for Asian Art and Cultural Heritages

This collaborative research project aims at advancing information
technologies related to the preservation, retrieval, and dissemination
of digital imagery for Asian art and cultural heritages. Researchers
in the US, China, and South Korea will collectively investigate and
develop technologies for acquiring, browsing, managing, and searching
large collections of high quality art images. This project will
contribute to the fundamental knowledge and technologies required to
create and maintain information systems that can operate in multiple
languages, formats, media, and social and organizational contexts.
The US research team will focus on (1) multimodal media management,
(2) distributed data mining, and (3) image storage and display. The team
will develop theoretical foundations to associate linguistic terms
with image features. The testbed databases of art images for this
research project consist of high quality scans, with metadata
information and detailed keyword information, as well as comprehensive
textual descriptions. The research work will show that (1) modern
machine learning and statistical data mining tools are capable of
learning from non-structured or semi-structured input data such as
human annotations, (2) statistical image modeling techniques can be
used in automatic linguistic indexing and concept dictionary building.
------